PostDoctoral Research Fellowship

This award is made as part of the FY 2019 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Marino Romero is "An e-positivity phenomenon". The host institution for the fellowship is University of Pennsylvania and the sponsoring scientist is James Haglund.